A Longitudinal Study of the Development of Adolescent and Young Adult Attitudes Toward and Knowledge about Science and Technology

The Longitudinal Study of American Youth (LSAY) began to follow probability samples of 7th and 10th graders in 1987, in order to determine student skills and knowledge in science and mathematics. In addition, the survey has gathered detailed information on student attitudes toward these subjects and toward possible careers in science, mathematics, engineering, and medicine, on parental attitudes and influences, and on aspects of schooling and the community that may affect student mastery and attitude. The present grant provides funds for further research on the original cohorts, taking them into college age, and supports additional analyses for interpretation of the evidence accumulated to date.